Integrating Analytical Thinking into Workshop Physics

9351589 Keefe The main goal of this project is to improve the learning, retention and application of physics principles and concepts by students studying physics at Clatsop Community College (CCC). This is being accomplished by incorporating a series of new investigations using contemporary computer technology into the curriculum. Microcomputers are used to perform data collection and graphing in the areas of force, motion, temperature, and radiation. The microcomputers are used to provide immediate feedback for student analysis of data, which stimulates them to experiment on their own with a larger number and variety of trials, to discover relations in the physical world. Six networked Microcomputer Based Labs (MBLs) have been obtained, all of which are equipped with a Universal Lab Interface (ULl), appropriate sensors and software. A master MBL station equipped with a high resolution Monitor, SuperDrive, modem and power source has also been obtained. This equipment is revitalizing the physics and Integrated Technologies programs at CCC, and is providing the necessary technology to further the college's stated mission to prepare physics students to meet the challenges of science in the next century. This project is encouraging students to continue to study and support science by improving their experiences with physics. ***y